Ecology In Education: Rocky Mountain Regional Workshop

The Ecological Society of America (ESA) has taken an active leadership role in creating regional alliances of ecologists and educators. ESA has held a highly successful conference on K-12 ecological education in conjunction with a meeting of the Association of Southeastern Biologists. This conference was attended by a team from each state, consisting of one or two ecological researchers, teachers, science education administrators, and education faculty members. Team members heard presentations on recent developments in pre-college ecological education, and they collaborated on an action plan for their respective states. The action plans and meeting proceedings were subsequently published in an ESA bulletin. The Society has planned a similar conference for the Rocky Mountain region. Ecological education in this region is made more difficult by the high level of ecological diversity in the area, and the difficulties of travel for parts of the year. The proposed Rocky Mountain conference will create benefits throughout the region and beyond. Once established, regional alliances such as this will be pivotal in implementing a national approach to ecological education. Conferences such as these capture the active participation of scientists in pre-college science education, create action plans for implementation, and solidify partnerships for educational improvement. Cost sharing represents 26% of the NSF contribution.